Collaborative Research: Collective Action Dynamics in the U.S., 1960-1995

COLLABORATIVE RESEARCH

SES-1154896
Jennifer Earl
University of Arizona

SES-1153797
Neal Caren
University of North Carolina, Chapel Hill

SES-1155008
Edwin Amenta
University of California, Irvine

Abstract

Collaborative Research: Collective Action Dynamics in the U.S., 1960-1995
Social movements are critical vehicles for political and social engagement, allowing
individuals to act collectively to influence government, business, and other vital social
institutions. This project examines four important questions about social movements using
combined and augmented data from two prior NSF-funded projects, the Dynamics of Collective
Action project and the Political Organizations in the News project.

First, the project will compare social movement dynamics using data on protest events versus data on social movement organizations (SMOs) with the innovative dataset described above. Second, the project investigates how disruptive tactics affect news media coverage of social movements and social movement organizations by using data on protest events. Given the continued importance of the news media, better understanding the dynamics that drive media attention is an important question for social movement scholars. Third, the project assesses the extent to which protest and the news coverage of SMOs may influence public opinion trends over time. Specifically, we expect that specific types of movement events shape how favorably the movement is perceived, that this shifts over the lifespan of the movement and depends on political responses to the movement. Finally, our project will examine a key methodological issue of interest to researchers: Selection bias suggests that the news media cover only a portion of social life and do so in selective and structured manners. Our project will use data on protest events and SMOs to pinpoint the differences between selective reporting on protest events versus the selective reporting on SMOs. Quantitative analyses will rely on negative binomial models, ARMA models, multinomial logistic regressions, as well as time series analysis.

Broader Impacts
Understanding the dynamics that shape political participation in a democratic context is an issue of broad interest to the general public and policy makers alike. Similarly, furthering our understanding of media coverage and public opinion of political activism is important to a broad set of stakeholders. Findings from this study may be of interest to policy analysts involved in monitoring domestic and international events and trends. Broader impacts also include the creation of publically available dataset on domestic political activism since 1960 at a scale hitherto unknown. In addition, methodological advances produced in the process of creating the data set, as well as those derived from analysis will be made available to the public. The project will also offer substantial research training to undergraduate and graduate students.